CAREER: Neural Basis of the Perception of Motion through Depth

Objects move through three dimensions, and the accurate perception of motion through depth is a key element underlying many human behaviors. From everyday activities like driving a car or shaking hands, to specialized skills like performing surgery or hitting a baseball, seeing the 3D trajectory of a moving object is a critical and central perceptual capacity. Although much research has focused on how the brain processes motion on flat (2D) surfaces, there is surprisingly little knowledge regarding how cues to depth are combined with motion signals to represent 3D motions. The goals of this project are therefore to identify and characterize the neural mechanisms involved in representing 3D direction of motion. Because a human's eyes are horizontally offset within the head, the two eyes view the visual world with some slight difference. The visual system must exploit the dynamic pattern of differences between the two eye's views to extract the direction of 3D motion. With support from a National Science Foundation CAREER award, Dr. Alex Huk and colleagues at the University of Texas at Austin will perform a series of behavioral experiments to identify which pieces of binocular information are used to represent 3D motion. A series of functional magnetic resonance imaging experiments will then use the same experimental displays to identify the resulting signals in relevant parts of the human brain, including primary visual cortex, the middle temporal area (an area known to process 2D motion), and subregions within the posterior parietal lobe. To more directly link perceptual experiences and brain activity, measurements of perceptual sensitivity to particular forms of 3D motion will then be quantitatively compared to measurements of neural sensitivity to these same motions.

These studies will provide a thorough characterization of how the brain processes visual motion in realistic environments, extending the careful behavioral and neural studies of 2D motion and static depth processing to a dynamic 3D world. The results will not only facilitate the integration and extension of current understanding of model subsystems within the visual cortex, but will more generally characterize some of the ways by which the nervous system represents information that is fundamentally complex and multidimensional. Likewise, this work may enable the development of 3D visual display technologies that are better suited to human visual capabilities. The CAREER award will support the training of undergraduate, graduate, and postdoctoral researchers, both in the classroom and the laboratory. It will also facilitate the development of compelling visual demonstrations at the heart of educational outreach efforts in high schools in both urban and rural areas around Austin.